Conference: C*-Algebraic Quantum Mechanics and Topological Phases of Matter

This award supports the summer school
“C*-Algebraic Quantum Mechanics and Topological Phases of Matter”,
which will take place July 29-August 2, 2024, at the University of
Colorado at Boulder. This workshop will be an opportunity for graduate
students and postdocs from a wide variety of institutions and
backgrounds to learn about the interplay between algebraic
quantum mechanics, topology, and condensed matter theory. There will be
problem sessions to help participants better learn the topics
presented. Materials from the conference will be disseminated broadly:
The talks will be filmed and posted on the Rocky Mountain Mathematical
Physics Seminar YouTube Channel. Problem sets and course notes will be
made available on the summer school webpage. This will create a
permanent resource for all those seeking to learn the topics of the summer
school. Another goal is to give some early-career researchers an opportunity to disseminate their
work. This will be done through contributed talks by junior
participants. The event will also create opportunities for junior
participants to interact with the speakers and more established
researchers. Funding from the NSF will make it possible to support
participants who would not be able to attend without support and will
be primarily offered to graduate students and postdocs. More information about the summer school can be found at https://sites.google.com/colorado.edu/caqm.

The scientific goal of the summer school is to explore how C*-algebras
are used to study topological phases of matter in the thermodynamic
limit, and how methods from topology can be applied in this setting to
study phases of quantum systems. Topics will cover background on
C*-algebras and the topology of state spaces, lattice spin systems,
Lieb-Robinson bounds, automorphic equivalence and symmetry protected
phases. In the study of quantum many-body systems with infinitely many
degrees of freedom, the thermodynamic limit is often of practical and
conceptual importance. A precise mathematical description of such
systems requires the use of a C*-algebraic formulation of quantum
mechanics, a formalism that comes with deep insights and technical
challenges in equal measure. C*-algebraic quantum mechanics has a long
history, with notable discoveries in the seventies, including Lieb-
Robinson bounds and the Doplicher-Haag-Roberts description of
superselection sectors which continue to spur modern research in
mathematical physics and condensed matter physics. In just the past
five years, C*-algebraic quantum mechanics has provided the basis for
cutting edge research on the rigorous classification of topological
phases of matter. This summer school will bring some of the foremost
experts in the field to teach the next generation of mathematical
physics, providing students with both a strong foundation in the
C*-algebraic formalism and a broad view of active frontiers of
research.